CRHCT: Cost-Reducing Protein Production and Delivery Methods

9708250 Saltzman Sexually transmitted diseases (STDs) represent a significant threat to the general population but this problem is even more prevalent in the urban environment. As a result 12 million Americans including 3 million teenagers acquire these diseases each year. This is an important social problem that has an impact on families and the community. Reducing the incidence of these diseases would be a factor in influencing social science thinking for years to come. The research to be conducted is directed toward a novel inexpensive approach to sexually-transmitted disease (STD) prevention using transgenic plant proteins and a polymer- based delivery system. Specifically, a polymer-encapsulated orally-delivered protein antigen would be used to prevent infection. The research seeks to solve three major problems: 1) Inexpensive methods for protein production. Obtaining protein from plants represents a less expensive alternative to laboratory production. 2) A self-administered (orally) delivery system. 3) Improving awareness of the potential impact of bioengineering on the economics of disease prevention. Other types of delivery systems will be considered that may be more effective in dealing with other diseases such as genital herpes, Hepatitis B, and AIDS. This research is being conducted in conjunction with an investigation at Boyce Thompson Institute supported by award BES-9729226. ***